Multiuser Optical Communications

This project is a study of several fundamental issues arising in the problem of multiuser optical communications. Two general topics are being addressed: (1) the stochastic modelling of the spectral behavior of semiconductor lasers and a corresponding assesment of the fundamental effects of phase instabilities on multiuser optical systems; and (2) the optimum demodulation of multiple access optical signals within both continuous and quantum observation models.